LTER: Scales of Variability in Ecosystem Dynamics and Production on the Changing Northeast U.S. Shelf (NES II)

The Northeast U.S. Shelf (NES) is the region of the Northwest Atlantic Ocean that overlies the continental shelf from North Carolina to Maine. The NES has a long history of intense human utilization and provides an array of ecosystem services including shipping, recreation, conservation, and energy development. The NES also comprises a seasonally dynamic and productive ecosystem, supporting renowned fisheries, whose integrity is critical to the health of the Northeast U.S. economy. The NES ecosystem’s productivity is fueled by planktonic organisms that interact with each other in complex food webs whose structure depends on environmental conditions. The Northeast U.S. Shelf Long-Term Ecological Research program (NES LTER) advances our ability to predict the dynamics of the shelf’s planktonic food webs and their ability to support the productivity of higher trophic levels, from fish to whales and humans. Because the NES is subject to long-term challenges that will impact many people, the project also emphasizes an active education component for helping to train the next generation of marine scientists and outreach activities to increase public understanding of marine science and technology. The project team conducts education and outreach via three main components: (1) training and mentoring for early career researchers from undergraduates to postdoctoral researchers in LTER research; (2) an LTER Schoolyard program that engages middle and high school teachers and students; and (3) public outreach through targeted events, the project website, and social media channels.

Patterns of ecosystem change over seasons to decades have been documented in the Northeast U.S. Shelf (NES), but the key mechanisms linking changes in the physical environment, planktonic food webs, and higher trophic levels remain poorly understood. As a result, predictive capability is limited and management strategies are largely reactive. To address these needs, NES Long-Term Ecological Research is targeting a mechanistic understanding of how food web structure and function responds to environmental conditions, natural variability and human induced changes. It combines observations that provide regional-scale context, process cruises along a high-gradient cross-shelf transect, high-frequency time series at an inner-shelf location, coupled biological-physical food web models, and targeted population models. In addition, the research team is investigating how community structure and trophic transfer are impacted by disturbances. The long-term research plan is guided by overarching science questions about how environmental change is impacting the pelagic NES ecosystem and, in particular, the relationship between compositional (e.g., species diversity and size structure) and aggregate (e.g., rates of primary production, and transfer of energy to higher trophic levels) variability. The investigators are assessing the extent to which the NES ecosystem possesses a biodiversity reservoir that is resilient to dramatic changes in the environment and that will allow the ecosystem to maintain overall productivity.